Geomagnetic Variations in High Latitude Conjugate Regions

This project will continue research on the variations of the Earth's magnetic field in high latitudes in both hemispheres. Magnetometers are located at South Pole; McMurdo; Iqaluit, NWT, Canada, and Sondre Stromfjord, Greenland, with most of the research activity focussing on the magnetically conjugate sites of Iqaluit and South Pole. Specific subjects to be studied include the coupling of the interplanetary medium into the magnetospheric cusp regions and the causes and propagation of low frequency hydromagnetic waves in the magnetosphere. A new magnetometer and data collection instrumentation will be installed at Iqaluit. This project is jointly supported by NSF and AT&T Bell Laboratories. The grantee institution, New York City Technical College, is an undergraduate institution and consequently the NSF funding is jointly provided by the Research at Undergraduate Institutions (RUI) program and the Division of Polar Programs.